Dynamical Models for the Interaction of Shocks with Dispersive Waves

In this work, the awardee will study models for the propagation of
shock waves through a dispersive environment. These kinds of
nonlinear, multi-mode interactions occur in a wide range of
natural settings. One example arises when acoustic shocks from
an underwater explosion propagate through the ocean and interact
with internal dispersive waves or surface gravity waves. Another
example arises in medical applications where acoustic waves and
shocks are used in the destruction of undesirable objects such
as kidney stones. A third arises when shock waves due to
supernova explosions propagate through the interstellar plasma
media. Despite the fact that these three physical settings
are characterized by vastly different spatial scales and
disparate physical mechanisms, there are important underlying
mathematical similarities that unite them. Each is characterized
by a multi-component amplitude equation governing
a fast-moving hyperbolic wave (shock), interacting nonlinearly
with a slowly-moving dispersive wave. This wide difference
of timescales, characterized by the ratio of dispersive group velocity to
shock speed, forms a small parameter which allows one to perform
a multi-scale asymptotic analysis of the interaction process.

The physical problem that the awardee will focus on
is an example of a shock-dispersive wave system that
arises when a supersonic object travels over the ocean surface.
The shock wave associated with a sonic boom leaves a pressure
`footprint' on the water's surface. The interest is in modelling
the interaction of this shock with the nonlinear ocean surface
waves in order to understand the penetration pressure below the
ocean surface. It is suspected that the finite amplitude
surface waves can act as focusing `acoustic lenses', which in
principle can increase the noise level below the surface and
create `hot spots' of more intense acoustic energy. Such problems
are of interest to oceanographers and marine biologists who are
concerned with the amount of noise propagating below the ocean
surface and its influence on marine life.
The model equations that will be studied are interesting
in their own right and capture important physical
mechanisms requiring new mathematical tools to analyse
and understand them.